An Undergraduate Research Experience in Microelectronics and Photonics

This program at Iowa State develops a symbiotic relationship with other similar programs to enlarge the scope of the effort. The students work with students supported by the Department of Education Undergraduate Research Opportunities for Minorities as well as the NSF Minority Scholars program. These students work on continuing and new projects in a) Advanced silicon processing for devices and integrated circuits, b) High-power and high-frequency bipolar transistors and other microwave devices, c) III-V compound quantum nanostructures, d) Non-crystalline silicon structures for energy conversion, e) Basic semiconductor material studies and f) ASIC design for high-frequency circuits and systems. They work on these projects full time during the summer and, if Iowa State University students, part time during the academic year. The program cooperates with State University of New York - New Paltz, Lincoln University, and North Carolina A & T. A microelectronics fabrication course is offered each summer with teaching responsibilities shared by all four participating faculty. Non- ISU students are able to transfer the course credits to their home institutions. It is expected that a number of the research-trained and motivated students will continue into graduate studies at ISU and elsewhere; consequently there is an active recruitment for graduate students interested in microelectronics and photonics from the program participants.